Engineering Research Equipment: Rotating Drum Camera and Particle Field Holographic System

ABSTRACT CTS-9622235 A high-speed rotating drum camera and the components to build a particle field holography system which will be purchased to supporting research in multiphase flows. The equipment will be used to generate a analyze data in two independent research programs: the high-speed breakup of viscoelastic and Newtonian liquids in a mach 6 shock tube, and the dynamic behavior of turbulent particle-laden flows. The objective of the breakup project is to generate the first systematic data and the first understanding of how viscoelastic liquids breakup when exposed to supersonic flows. The drum camera will provide data on the mechanisms governing the breakup event, which is essentially complete in less than 500 ( sec. The particle field holography system will provide three-dimensional data on the size, shape, and distribution of the fragments after initial breakup. The objective of the particle-laden flow project is to understand the dynamical behavior of turbulent flows that are laden with particles or fibers. The drum camera will provide high resolution, high repetition rate sequences of flow events. The holography system will yield three-dimensional information on fiber orientation and flocculation. ***